C-RUI: Spatial Modeling of a Biological Invasion: the Spread of Sudden Oak Death and the Importance of Host Genetics, Environmental Forcings, and Community Structyre

Biological invasions represent a major component of global environmental change.
Invasions may lead to reduced biodiversity and often result in permanent alterations to
ecosystems.Invasive non-native plant pathogens have dramatically affected ecosystems in many
parts of the world.The mechanisms underlying dispersal of these pathogens and their ecological
consequences are critical issues for conservation and ecosystem management.Spatial pattern is
a fundamental property of disease dynamics because it reflects the genetic heterogeneity and
environmental forces acting on pathogen dispersal and life history.A multidisciplinary approach
is required to solve the challenges of 1)incorporating fine-scale processes of pathogen dispersal
into landscape-level models and 2)integrating spatial variation in environmental factors and host
population genetics with disease incidence.
In this proposal,we describe research to analyze spatio-temporal dynamics of
Phytophthora ramorum,an emerging,and probably exotic,pathogen that causes a lethal disease
of oaks and tanoaks in coastal California.This disease,known as Sudden Oak Death (SOD),has
reached epidemic levels in several counties.The proposal integrates spatial data on host
genetics,community structure,and environmental variation with investigations of mechanisms
underlying spread of P.ramorum to model changes in the distribution of this plant disease across
the landscape.Model predictions will identify critical factors that influence the distribution of
SOD and provide forecasts of habitat loss in oak woodlands as a consequence of SOD.This
proposal describes a multidisciplinary program to model the spread of a destructive plant disease
and to predict its ecological consequences.Our objectives are not developed as discrete
activities for individual researchers,but rather a collaborative effort among researchers to attack
a single problem.We aim to accomplish the following:
1.Develop a statistically based model that predicts spatial patterns of SOD risk on the
landscape,based on relationships among several critical environmental factors.These factors
include proximity to previously infected locations,genetic background of host species,plant
community structure,landscape structure,abiotic conditions,and anthropogenic activities.
2.Develop a mechanistic model that predicts spatial patterns of pathogen activity and host
susceptibility based on empirical studies of pathogen dispersal between hosts on fine spatial
scales and on environmental conditions conducive to pathogen reproduction and dispersal.
3.Develop a model of SOD spread that integrates the most predictive components of the
statistical and mechanistic models.
4.Foster participation of undergraduates in this cross-disciplinary research and integrate the
research into the curriculum of core courses in the Departments of Biology and Geography at
Sonoma State University.
Sonoma State University is located within 20 km of the study area,which is easily
accessible to PI s and their students.Previous analyses of the relationship between
environmental variation and SOD spread have concentrated on the most heavily impacted
regions in Marin County where the pathogen has infected trees throughout the study area.In
contrast,the present study focuses on SOD spread into new areas that presently show no sign of
infection.We believe that this approach will contribute substantially towards a greater
understanding of the biology of this pathogen and to our understanding of the ecology and
genetics of plant-pathogen interactions.The timing of this study will also ensure involvement by
motivated undergraduates at Sonoma State University who wish to participate in research that
everyone recognizes is of critical significance to the larger community.